1996 Gordon Research Conference on Nuclear Chemistry; June 16-21, 1996; New London, NH

9600500 Trautmann The 1996 Nuclear Chemistry Gordon Research Conference will provide an international community of nuclear scientists with a forum for the exhibition of the newest development at the forefront on nuclear reactions initiated by heavy-ion beams. The discussions will emphasize reaction mechanisms including low- energy fusion, incomplete fusion, deep-inelastic reactions, multifragmentation, the formation and decay of hot and/or compressed hadronic matter, and particle production in relativistic and ultra-relativistic nuclear collisions. ***